Partial Travel Support for US Researchers to Attend 2003 IEEE/ASME Advanced Intelligent Mechatronics Conference (AIM03)

Recognizing the needs for a synergistic integration of mechanical engineering with electronics
and intelligent computer communication and control in the design and manufacture of products
and processes, a new International Conference on Advanced Intelligent Mechatronics (AIM) was
jointly approved by the Institute of Electrical and Electronic Engineers (IEEE) and the American
Society of Mechanical Engineers (ASME) in 1997. Since its first inception in 1997 in Tokyo, the
IEEE/ASME AIM Conference has been held biennial, rotating the host country among Japan
(AIM'97), the United States (AIM'99), Europe (AIM'01), and, in the future, other Asian Pacific-Rim
nations as well. The conference has been co-sponsored by the IEEE Industrial Electronics
Society (IES), the IEEE Robotics and Automation Society (RAS), and the ASME Dynamic
Systems and Control Division (DSCD).
The great practical significance of the conference theme has made past three AIM conferences a
success and the conference has been expanded significantly from predominantly Asians
participants in AIM'97 in Tokyo to a good representation of US scientists and engineers in
AIM'99 in Atlanta, and the European participants in AIM'01 in Como, Italy. This year, the
conference will be held in Kobe, Japan, in July 20-24, 2003. The conference will provide a
unique venue where researchers, engineers and industrial exhibitors from the globe who are
interested in advancing the state-of-the-art of mechatronics gather and discuss effective ways to
advance mechatronics as an emerging engineering technology and a new discipline in the 21st
century. In order to achieve the conference goal of bring together researchers from the globe in
the fields of mechanical engineering (ME) and electrical engineering and computer science
(EECS), partial funding is requested from the National Science Foundation to assist US
researchers to contribute and present papers in the AIM'03. It is expected that such a partial
support will not only encourage the active participation of US researchers in the conference to
promote global collaborations, but also advance the US mechatronics education and research in a
long run due to the following unique features of the conference: (i) the host country, Japan, has
been excelling in Mechatronics, (ii) the conference will draw worldwide participation from 26
countries based on the accepted papers, (iii) an innovative format of interactive sessions will be
developed the first time in demonstrating various real mechatronics systems, and (iv)unique
industrial visits have been arranged by the Japanese organizers for conference participants in
showing the practical applications of the discipline.